Parellel Computing for Undergraduate Faculty

This project is introducing 16 undergraduate computer science faculty to parallel computing. When they have completed the project they will not only be prepared to develop an undergraduate course on parallel computing, but also to assess the feasibility of establishing an undergraduate parallel processing laboratory at their own college and to be aware of the possibilities for incorporating aspects of parallel computing into other courses. The project begins with an intensive two-week course in the summer of 1991. The course includes lectures surveying the broad scope of parallel computing and instruction on the design and implementation of parallel algorithms. About half the time during this course will be spent doing hands-on programming. There will be a parallel development workstation for every participant and four parallel computers (three with sixteen processors, one with eight processors) for running and benchmarking the programs. During the Fall, participants will work on larger projects, with site visits from the instructors and/or visits back to Colgate. In January 1992 there will be a one-week seminar during which participants will present their projects and discuss the practical aspects of teaching parallel programming to undergraduates.